US/NSF and European Commission/IST Workshop on Global Issues in the Social and Economic Impacts of IT to be held October 16-19, 2001, in Venice, Italy

This proposal is for a Digital Society and Technologies Program workshop on "Global Issues in the Social and Economic Impacts of IT" to be conducted jointly with the European Commission's Information Society Technology program in conjunction with their research conference "e2001: e-Business and e-Work" to be held in Venice, Italy, October 17-19. The proposed workshop will be held on October 16, in advance of the conference. The workshop will explore a research agenda regarding the global social and economic impacts of IT and the possibilities for international cooperation in gathering multi-country data and conducting research. The workshop will discuss research issues related to 1) the global diffusion of IT production and use, the globalization of e-commerce (including mobile e-commerce), the new ways of working and collaboration, and the influence of national environments and government policies on IT diffusion and impact. A report will be produced indicating the results from the workshop.